REU SITE: Research Experiences for Undergraduates in Materials Science and Engineering

Rensselaer Polytechnic Institute operates a Research Experience for Undergraduates (REU) Site in its Materials Science and Engineering Department. The goal of the program is to expose undergraduate students to materials science and engineering through hands-on research and to the connections between fundamental research and real-world engineering problems. Ten students are recruited every year for a ten-week summer research experience. Research projects offered range from weld-line fracture of superalloys to synthesis of nanomaterials, to the properties of electronic materials, with a common theme on structure-property relationships. Some of the projects involve industrial participation and in those cases students will spend part of the time at the industrial laboratory.